Psychology Computer Applications Laboratory

This project enhances undergraduate student's understanding of the quantitative aspects of model-based research in Psychology. To that end, a computer-based laboratory is established that enables students to: (1) experiment with models of psychological processes to obtain insight into (and intuitions concerning) the nature of quantitative models and the effects of altering or adding parameters; (2) undergo demonstrations of basic findings and methodologies presented in the relevant courses; (3) establish research projects that help automate students' problem-solving abilities in experimental methodology, programming, and data collection; and (4) use integrated graphics and statistics packages to enhance understanding of statistical concepts and techniques, and to develop insights into experimental design and data. The laboratory consists of five work stations and software (some off the shelf, but much of it being developed) with sufficient memory and speed to enable extensive modeling and statistical applications. Students are provided with insights into methodological and theorectical issues in psychological research that can come only from extensive hands-on experience with research; experience that is speeded up by use of sophisticated work stations with on-line capabilities. The institution is matching the NSF grant with an equal amount of funds.